X-ray Based Mass Transfer Contactor Flow Field Visualization

X-Ray Based Mass Transfer Contactor Flow Field Visualization

Fluid flow impacts the performance of process systems in a broad cross-section of industrial
applications. Separations equipment, chemical reactors, biological contactors, fermentation
vessels, and heat transfer devices all perform at the mercy of hydraulic phenomena. Historically,
models of the flow fields have been, at best, highly empirical. With the advent of high speed
computers utilizing efficient parallel processing architecture, detailed computer simulations of
hydraulics have become feasible. However, the ability to validate these high fidelity models has
lagged behind the model development. The proposed research program will utilize results and
experience gained from prior flow distribution studies in combination with the extensive X-ray
expertise of General Electric to develop a technique for validating these modern state-of-the-art
hydraulic models. Successful completion of the project will produce a technology with
applicability to a host of industrial processes and will make a major contribution to the basic
understanding of fluid flow phenomena.